CAREER: Characterizing detailed structural modifications of ancient continental lithospheres using full-wave seismic imaging methods

Continents on Earth hold a record of how our planet formed and evolved. However, scientists do not fully understand why some ancient continental regions have remained stable while others have changed over time. This project will improve understanding of how processes deep inside the Earth change continents and affect tectonic forces that shape our planet. The research will compare major continental regions in western North America, South America, and Australia to identify shared patterns in their deep structure and history. In addition, the project will develop open-access training materials to help students build technical skills in geoscience data analysis and visualization using real scientific data. By combining research, training, and outreach, this work will broaden access to Earth science education and help prepare the next generation of geoscientists. This knowledge is important because continental structure influences assessment of natural resources.

This project will study how major tectonic features modify continental lithosphere from craton interiors to their margins by comparing seismic imaging results of western North America, South America, and Australia. Although recent seismic studies reveal that cratons are structurally complex, existing models were developed with different methods, data coverage, and resolution, making rigorous comparisons difficult and likely underestimating internal heterogeneities. This project will address this knowledge gap, by developing and applying a full-wave ambient noise tomography. This new approach will resolve radial anisotropy, producing consistent shear-wave velocity and anisotropy models for the upper ~200–250 km of the lithosphere across all three regions. These models will be integrated with complementary geophysical and geological observations to test how structural modification relates to tectonic setting and long-term continental evolution. The intellectual merit of the work lies in establishing a uniform comparative framework for imaging and interpreting lithospheric architecture across major cratonic systems, improving understanding of the processes that rule continental stability and reworking. The project will support open science through the development of open-access GeoViz modules, in-person and virtual training for senior undergraduates and early-stage graduate students, public release of data products and codes, and workflows that convert three-dimensional seismic models into mixed-reality resources for research, outreach, and classroom use.